Theory of Quantum Dynamics for AMO Systems

The primary aims of the present proposed project is to study entanglement
decoherence of many-body qubits or multilevel quantum systems and to develop a
quantum trajectory approach in several important AMO physics domains. Two examples
are: entanglement dynamics of multilevel atomic systems coupled to a quantized field
and non-Markovian trajectories for quantum systems coupled to a fermionic
environment. Our primary interest of application is quantum decoherence of quantum
open systems in AMO and condensed matter systems and the simulation of quantum
entanglement dynamics of many-body systems.